Electron Diffraction Studies of Liquid Crystal Films

This proposal concerns the use of electron diffraction to study the structure of free-standing films of smectic liquid crystals that exhibit novel hexatic ordering.